Undergraduate Research in Materials Chemistry

This Research Experience for Undergraduates (REU) Site project is in the area of Materials Chemistry. For a three-year period beginning April 1989, nine (9) undergraduate students will spend ten (10) weeks engaged in research activities, ranging from synthesis of new materials to characterization of their physical and chemical properties. The goal of this program and its unique feature - its concentration on highly-qualified women - will ultimately introduce into graduate programs women who have been directly involved in the creative fusion of Chemistry and Materials Science.